Toxin Sesitivity and Cytoplasmic Mall Sterility in the TexasCytoplasm of Maizie

Associated with the Texas male-sterile cytoplasm (cms-T) of maize are the traits, cytoplasmic male sterility (cms) and susceptibility to two leaf diseases. The mitochondrial genome of cms-T maize contains a unique gene, urf13-T, that encodes a 13 kDa protein which has been implicated with cms and disease susceptibility. Helminthosporium maydis, race T, a fungal pathogen produces a pathotoxin that is responsible for its virulence toward cms-T maize. cms-T mitochondria are specifically sensitive to the pathotoxin, and the basis for the sensitivity is a 13 kDa protein encoded by the mitochondrial gene, urf13-T. We propose to study the mechanism by which the 13 kDa protein confers toxin sensitivity to mitochondria. Mutational analysis will be used to characterize the properties of the 13 kDa protein that are important in conferring toxin sensitivity. Toxin binding, toxin protection experiments and the effect of the toxin-protein interaction on membranes will be studied. Previous studies have indicated that cms may be caused by mitochondrial dysfunction. We propose to investigate the relationship between cms and mitochondrial function by microscopy, mitochondrial protein expression and potentiometric dyes. Transformation experiments and other approaches will be used to evaluate the role of the urf13-T gene in cms. An interesting sequence, ORF25, will also be studied to determine its function and role in cms. The inability to separate the two tracts of disease susceptibility and male sterility has led to the possible belief that both phenotypes could be caused by the same mitochondrial gene. These experiments should enhance our understanding of the linkage of the two traits, an understanding which has both basic and economic ramifications.